Strain Effects on Ground and Excited State Behaviors of Polycyclic Aromatic Hydrocarbons

With funding from the Organic Dynamics Program, Professor Plummer at Trinity University is investigating the effects engendered on an aromatic system by increasing the ring strain. The focus of this research is to distort the normal planar geometry of aromatic systems by appending cyclopentene units to the aromatic rings. This distortion will alter the pi electron density, which is manifested by a detectable change in chemical reaction characteristics. Further, protons in the `Bay Region` of these perturbed polynuclear aromatic ring systems should exhibit marked NMR chemical shifts as a result of steric compression. Aromatic compounds are ubiquitous in feed stocks from crude oil. Thus, finding new ways to control the chemical characteristic of them would have widespread usefulness in industry. This research will probe ways to alter the chemistry of aromatic systems in a predictable manner by imposing ring strain. This research is to be conducted at an undergraduate institution.